Pan-American Advanced Studies Institute on Materials for Energy Conversion and Environmental Protection, Rio de Janeiro, Brazil, September 2003

0220839
Chang

This Pan American Advanced Studies Institute (PASI) award on Materials for Energy Conversion and Environmental Protection, jointly supported by the National Science Foundation (NSF) and the Department of Energy (DOE), is being organized by Dr. R. P. H. Chang of Northwestern University in collaboration with
Dr. Guillermo Solorzano of the Catholic University of Rio de Janeiro. The proposed PASI will take place in Rio de Janeiro, Brazil during the first week of September 2003. Experts in fields of energy conservation, energy storage and environmental remediation will present lectures and engage students in discussion sessions. Lecturers will discuss new materials and processes for fuel cell design and applications, new catalytic materials for hydrogen gas generation, and the use of carbon and metallic materials for hydrogen storage. Another part of the PASI will be devoted to the study of environmental protection and emissions reduction for a range of pollutants. Students participating in this PASI will develop a collaborative research plan and gain an understanding of the latest research related to energy conservation.